Braids and Knots

The main focus of this proposal is the conjugacy problem in braid groups,
and ultimately in Garside and Artin groups and also in surface mapping
class groups. To begin, we propose to investigate the interface between
two known approaches to the conjugacy problem in the braid groups: (a) the
combinatorial solution that originated with the work of Frank Garside in
1968; and (b) the dynamic approach which was first studied by Jakob
Nielsen in 1932 and later given new meaning, in 1982, by William Thurston.
We note that (a) gives a definitive test for when two braids are
conjugate, whereas (b) gives less than that. On the other hand (a) is
exponential in both word length and braid index, whereas (b) suggests the
possible existence of a polynomial solution. The moment seems to be ripe
for an investigation which combines aspects of both. The new work of
Gebhardt on (a) shows that the `Super Summit Set', a complete class
invariant, can be replaced by the smaller `Ultra Summit Set' (USS). Our
hope is to use the known dynamic classification to study the USS. We will
begin with a study of reducing curves for reducible braids, and go on to
study finite order (FO) and pseudo-Anosov (PA) braids. We conjecture
that for braids in the USS the reducing curves can be chosen to be round
circles which meet a line containing the punctures in 2 points. We
conjecture further that PA braids have `rigid powers whose combinatorics
is particularly simple. Looking at the braid group as a special case of
mapping class groups, one then expects further that the associated train
tracks will be special and interesting. If all this goes well, there will
be further problems to investigate, including related combinatorics in
more general mapping class groups, and related dynamics in more general
Garside and Artin groups.

In recent years there has been great interest in certain codes, in `Public
Key Cryptography, which are based upon the use of braid groups. The
underlying idea has been that the so-called `word problem in the braid
groups is known to have a solution which is fast. That is, the time
required to check whether two words represent the same element in the
braid group is known to be polynomial as a function of word length L and
braid index N. On the other hand, the conjugacy problem, which is more
difficult, has been thought to be fundamentally exponential in L and N.
Like most such problems in complexity theory (e.g. the factorization of
numbers into primes) the possibility always exists that a particular
problem which was thought to be exponential will turn out to be polynomial
if a more ingenious solution can be found. The PI has been a leading
expert in the study of braid groups for many years. She now proposes to
investigate the conjugacy problem in the braid groups from a new point of
view which she hopes will show it to be polynomial, like the word problem,
in both L and N. The underlying idea is to look at two very different
approaches to the conjugacy problem, one based on `combinatorics and the
other on `dynamics, and to apply ideas from the second approach to
simplify the first. If successful, this research would have implications
in Public Key Cryptography as regards the security of codes based upon
braid groups. It should also have many applications in mathematics because
of the central role played by the braid groups.